Integrating a Chromatography Work Station Throughout the Chemistry Laboratory Curriculum

9351185 Miller The project will purchase equipment for a chromatography teaching station that consists of gas chromatography (GC), high performance liquid chromatography (HPLC), and an HPLC simulation program. The teaching station will be used to introduce chromatography in a developmental and experiential way throughout the chemistry laboratory curriculum. During the advanced courses, students will modify instrumentation to obtain more sophisticated results. The teaching station will be interfaced with a microcomputer to allow data acquisition, analysis and